CAREER: The Nature of Average-Case Computation

The recent surge in the applications of machine learning is powered by algorithms that learn hidden patterns in large volumes of data. Designing faster and more reliable data analysis algorithms is a key challenge in broadening the scope of such applications. However, researchers have realized that the classical framework of algorithm design is inadequate for this task. This is because large data in almost every application is modeled using statistical models as opposed to the standard worst-case model used in algorithm design. Consequently, central challenges that involve an interplay between algorithms and statistically generated data remain widely unresolved not just in machine learning but also in statistical physics and cryptography. This project will address this critical deficiency by building a principled theory of algorithm design for statistical (aka average-case) data. The new paradigms explored in this work will unify the currently fragmented set of approaches for studying average-case computation. The curriculum development plan outlined in this project will train the next generation of scientists in the algorithmic methods tailor-made for problems in large scale statistical data analysis and disseminate the modern paradigms for understanding computation to both graduate and undergraduate students.

Average-case complexity is a central thrust in the theory of computation with a direct impact on potential technological advances in machine learning and cryptography as well as basic questions in statistical physics. Examples include training expressive statistical models such as Gaussian mixture models and Sparse PCA to find patterns in large data in machine learning, ascertaining the security of pseudo-random generators in cryptography, and finding the lowest-energy states of spin-glass systems in statistical physics. Our current understanding of such problems is based on fragmented, domain-specific algorithmic schemes such as statistical query methods and method of moments (in machine learning), belief propagation (in statistical physics), and semidefinite programming hierarchies (in computational complexity). This project is devoted to building a unified theory of average-case computation that offers new tools to design better algorithms, prove sharp lower-bounds, and allow rigorously transferring insights between different specific frameworks. This investigation will build new bridges between theoretical computer science and several adjacent areas including machine learning, statistical physics, algebraic geometry, and probability. In addition, it will further develop the burgeoning understanding of the sum-of-squares semidefinite programming hierarchy, mixture models, and use of solution-space geometry in solving random constraint satisfaction problems.